Workshop on Eco-Cultural Niche Modeling: Hominin Dispersal and Adaptation to High Latitudes

ABSTRACT

This workshop, which is co-funded by OISE and OPP is the internationalization of the workshop "Eco-cultural niche modeling: A new way of approaching the archaeological record," held at the University of Kansas, Lawrence, March 2004. The second workshop will be held in France in October 2005 with join support from the European Science Foundation and will include participation by the international science community with expertise in hominid evolution, paleoclimateology, niche modeling and informatics. In addition, the workshop will expand on the earlier eco-modeling proof of concept to focus on Pleistocene environments.